Computer Laboratory/Classroom for Instruction in Calculus, Linear Algebra & Differential Equations and for Teacher Preparation

This project is developing a computer laboratory to strengthen undergraduate mathematics education and teacher preparation. The computer laboratory is allwoign for a sgignificant change in active participation in learning. Problem-solving skills, situational strategies, and solid understanding of concepts are resulting from the laboratory format. The calculus sequence and linear algebra are using the laboratory format, as are other upper-level courses. The laboratory is also having a strong impact ont he preparation of secondary mathematics majors. An in-depth exposure to this format is developing an understanding o the inter dependence of analytical, numberical, and graphical mthods, which is carrying over to the way these potential instuctors will teach mathematics. A course is being developed emphasizing technology, in which students can create lessons (using Maple, Geometer's Sketch Pad, Cabri Geometry, spreadsheets, etc.), review software for their techig, create online exams and assessment activites, and sue the World Wide Web to obtain material involving mathematics education. Secondary education mathematics majors are participating in "Mentor to Mentor" workshops that use unversity students to "mentor" the high school techers in using Maple, while the in-service teachoers "mentor" the students in mathematical pedagogy. *